Toolik Field Station Base Funding

The Toolik Field Station (TFS) has been a major site for research in the North American Arctic
since 1975. Much of what is known about structure and function of arctic terrestrial and aquatic
ecosystems, effects of climate change, and feedbacks to global climate has emerged from long
term, process-based ecological research at TFS. TFS-based work has resulted in significant
discoveries on adaptations of organisms to the Arctic and population-level changes in animal
and plant distributions and phenologies. Because climate is changing rapidly in the Arctic,
continuing research into mechanisms of ecosystem response and feedbacks is a high priority.
This need and ongoing interest by scientists from many disciplines in use of TFS promise a
steady demand for TFS science support in the future. TFS supports the Arctic Long-Term Ecological
Research program (LTER), projects in the Arctic Observatory Network program (AON), NASA’s
Arctic Boreal Vulnerability Experiment (ABoVE), the Earthscope Transportable Array, and is
a core site for the National Ecological Observatory Network program (NEON). TFS is a founding
partner in the EU-sponsored International Network for Terrestrial Research and Monitoring
in the Arctic (INTERACT), which links field stations around the circumpolar Arctic, and a
member of the Organization of Biological Field Stations (OBFS). At least 993 peer-reviewed
journal articles, 161 books or book chapters and 144 dissertations and theses have been published
on research based at TFS.